Midgap States in Tantalum Triselenide

The presence of soliton states with energies below the single particle gap in charge-density-wave (CDW) conductors is of great theoretical importance, but as yet, they have not been measured directly. Such states should have fractional charge, and are expected to exist at equilibrium in commensurate or nearly commensurate systems. They are also implicated in the conversion between CDW and normal (band) carriers at electrical contacts. Two experiments are proposed to optically observe such states in TaS3. They combine the expertise of investigators from the Institute of Radio Engineering and Electronics, Russian Academy of Sciences and the University of Kentucky; the experiments will be undertaken at the University of Kentucky. Bolometric specta will be taken as a function of uniaxial strain to look for changes in the equilibrium density and energies of solitons. Transmission spectra near electrical contacts will be taken as functions of CDW current. %%% Experimental and theoretical research on charge-density-wave (CDW) conductors such as tantalum trisulfide (TaS3) continues to be of current interest. Like superconductors, these materials exhibit collective electron transport; i.e. the current is carried by coherent motion of all the electrons. Unlike superconductors, however, this motion is strongly affected by impurities and other crystalline defects, leading to a number of unique and surprising properties. Defects in the CDW itself, (called "solitons") have energies less than the CDW energy gap. Such defects are necessary to convert "normal" electrons into CDW electrons at electrical contacts; furthermore, fractional electric charge (i.e. less than the charge of a single electron) is localized at each soliton. However, such defect states have never been directly observed. This proposal describes two experiments, to be carried out at the University of Kentucky. The work is a collaboration between the host institution and the Institute of Radio Engineering and Electronics (Moscow), to look for "midgap" soliton states in TaS3 using infrared spectroscopy. In the first experiment, changes in the spectra caused by straining the sample, which changes the defect concentration, will be sought. In the second experiment, changes in spectra near electrical contacts as functions of current will be explored.